NRI:FND: Unifying standard physics-based control with learning-based perception and action to enable safe and agile object manipulation using unmanned aerial vehicles

Flying robots capable of object manipulation will enable new applications such as load pickup and delivery, infrastructure inspection and repair, agricultural crop management and harvesting. Currently though, aerial vehicles are limited in their agility and robustness when in close contact with their surroundings. More specifically, controlling aerial robots to interact with the natural environment requires complex models for inferring object dynamics in real-time through shape and appearance, dealing with contact and compliance, relying on complex perceptual cues such as occlusions or shadows, while at the same time ensuring safety and reliability. Currently, standard algorithms for robotic perception and control are not sufficient for such tasks. While machine learning techniques have proven powerful for vision-based perception and more recently for control in simple environments, current learning techniques are not directly suitable for agile autonomous vehicles where safety is critical and failed actions can be fatal for the robot and humans around it. To overcome these challenges, this project proposes a framework that combines standard control methods with learning-based perception and action in an integrated framework equipped with formal high-confidence guarantees on performance. The proposed methodology aims to enable autonomous vehicles to accomplish tasks that are currently impossible or infeasible to achieve with standard methods.

The project will develop computational theory and algorithms that combine standard, i.e. physics and logic-based, control methods with learning-based control, implement a software framework and apply it to aerial manipulation tasks. More specifically, a fully differentiable framework will be developed that integrates components with known dynamics based on classical physical state representation and components that adapt to a given task through a learned implicit state representation that captures rich inertial and visual sensing. Then, a methodology for robust policy optimization with safety certificates will be developed based on high-fidelity stochastic models learned from robot data and then used to compute action policies in simulation using learned synthetic sensor models. The policies can be equipped with high-confidence formal bounds on performance and safety, which are validated and adapted in the real world. As a result, the robotic system can operate efficiently with guarantees on performance and safety. Finally, a fault-tolerant autonomy software framework will be implemented and the algorithms validated using three applications of aerial manipulation: object pick-up and transport in cluttered environments; remote sensor placement and infrastructure inspection; agricultural crop sampling and management. The proposed theory and methods are generally applicable to any robotic system operating in challenging environments, beyond aerial vehicles.